CISE Research Instrumentation: Equipment Proposal for High-Speed Local Area Networking

An existing research laboratory will be upgraded to a high- speed networking research laboratory. Projects relating to high- speed networking shall be supported including: * Priority scheduling of multimedia traffic. * Multicast communication and group management. * Congestion control in high-speed networks. * Task scheduling in a distributed environment.